Undergraduate Chemical Engineering Research at USF

An REU site is established to address the problem of inspiring undergraduate chemical engineering students to pursue careers in research. Junior-level chemical engineering students from various schools throughout the U.S. and its possessions will be invited to the site to work in relevant areas of research within chemical engineering. The focus of the program is on new areas within chemical engineering and on novel applications in traditional areas. The program will give each participant a formal introduction to research and a well defined project with faculty supervision, but the participants will also be encouraged to be creative and independent as they develop. The students will be paid stipends of $ 2,000 for the ten week program in addition to being housed and fed on campus. A travel allowance for each student is also included in the budget. Although the program is not limited to minorities and women, an effort will be made to include a significant fraction from these groups. The combination of extensive facilities and a commitment to undergraduate research provides important characteristics. The faculty is committed to this program. Research projects include lipid-water phase behavior and bacterial growth, polymer properties and productive, solubility vapors in polymers, instrument interfacing, supercritical fluid technology, and computer simulation of physisorption phenomena.